Molecular Response Properties from Ab Initio Quantum Electrodynamics

Dr. Eugene DePrince of Florida State University is supported to develop theoretical tools for simulating the properties of molecules that are strongly coupled to light within optical cavities. Strong interactions between confined photons and molecular systems can lead to the creation of hybrid light-matter states, known as polaritons, that have wide-ranging chemical and technological applications. Cavity-induced modifications of nonlinear optical properties, for example, have potentially far-reaching impacts in quantum information science (QIS) where nonlinear optical effects can be leveraged for the generation entangled photons for applications in quantum cryptography, sensing, computing, etc. The DePrince group will develop theories and software to fill a gap in the existing computational toolkit for the high-accuracy description of cavity-induced changes to molecular properties. Such tools have the potential to facilitate the rational design of new polariton-based technologies relevant to light harvesting, super conductivity, and QIS. All software developed under this program will be released in a free and open-source manner. The DePrince group will also develop free online educational materials for quantum chemistry and computer science education.

Dr. DePrince and his team will develop cavity quantum electrodynamics (QED) generalizations of standard electronic structure methods for the description of high-order molecular response properties of cavity-bound systems, focusing on both coupled-cluster (CC) and density functional theory (DFT) based response theories. Additional methodological work will focus on achieving many-body molecular response theory calculations for cavity QED applications that retain the computational cost of standard (non-QED) calculations. Electron-photon exchange-correlation functionals for QED-DFT will also be developed with the aim of reproducing cavity-induced changes to molecular response properties predicted by CC response theory. The broader impacts of the project will be maximized through the distribution of the software developed under this research program in a free and open-source way on GitHub. The educational component of the project will involve the development of Jupyter-notebook-style tutorials on quantum mechanics, molecular response theory, and cavity QED generalizations of electronic structure theory. The resulting tutorials will serve as online textbooks for undergraduate and graduate-level courses on quantum mechanics and electronic structure method development.